Postdoctoral Fellowship: OPP-PRF: Mapping Antarctic Geodiversity: Assessing People, Place, and Abiotic Nature in the McMurdo Dry Valleys

Geodiversity is the variety of non-living elements like rocks, landforms, and processes in a given area, and plays an especially critical role in Antarctica. Geodiversity provides the conditions in which life can develop and underpins all ecosystems on Earth. It also provides tangible services to people (like construction materials) as well as intangible benefits (such as scientific knowledge from ice cores and artistic inspiration from glaciers). Despite its importance, Antarctic geodiversity remains under-explored, under-described, and inadequately mapped. This knowledge gap is particularly concerning given the threats posed by increasing human activity and environmental and climate change. This project uses a variety of datasets to map Antarctic geodiversity, assess its benefits to people, and help identify priority locations for conservation.

Through an interdisciplinary and mixed-method approach, this research will fill a major gap in the current understanding and representations of the Antarctic. Using the McMurdo Dry Valleys as a case study, the researcher will combine geospatial data on geology, geomorphology, pedology, and hydrology to map geodiversity of the region. This project will identify sites of key geosystem services by analyzing geospatial data on placenames, scientific samples, and a web-based participatory mapping survey. The geodiversity and geosystem services data will then be overlaid and combined to identify hotspots of geo-social diversity. The resulting maps will be compared with the region's protected area boundaries to assess the fit-for-purpose of current environmental management and identify priority locations for future research and conservation. The fellow will promote Antarctic geodiversity broadly, including at UNESCO International Geodiversity Day.